Workshop on the Allocation of Resources to the Young in Animals and Man; Erice, Italy, June 10-15, 1990

This award will support a workshop organized by Professor Frederick vom Saal and Bruce Svare of the University of Missouri and Professor Stefano Parmigiani of the Institute of Zoology in Parma, Italy. The workshop, to be held at the Center Ettore Majorana in Erice, Italy, aims to bring together scholars from a number of disciplines: biology, psychology, anthropology, history who are examining the causes of abuse of infants, as well as the factors influencing the investment of resources in them. The capacity for parents to protect their offspring is an essential component of reproductive success in species in which there is parental care. Only recently has the phenomenon of infanticide, defined as the killing of preweanling young by members of the same species, been viewed within the context of evolutionary biology. Prior to the late 1970's the killing of infants by conspecifics was generally viewed as an aberrant behavioral response to a breakdown in social structure. A conference on Infanticide in 1982, and the subsequent book, served as the impetus for a considerable amount of research over the last 7 years. This workshop will serve an important function in reviewing the latest findings and discussing future directions.